Evolution of Maternal Effects in a Model Avian System

A central tenet of evolutionary biology is that natural selection leads to
adaptation. Studies of house finches in Montana and Alabama have
documented that indeed, these birds have rapidly adapted to the local
environment, despite having colonized these highly ecologically distinct
areas only in the last few decades. Local adaptations include different
sizes and shapes for males and females but these changes have occurred too
rapidly to be explained by genetically based changes alone. It has been
documented previously that rapid changes in how male and female house
finches grow and develop in Montana and Alabama are responsible for
differences between the populations. In particular it is the allocation of
males and females to different positions in the laying order and strong and
sex-specific effects of laying order on growth and development that led to
rapid changes in the populations. How such maternal effects can affect the
growth of males and females is the focus of this study. This investigation
will test whether female allocation of hormones such as testosterone and
prolactin, specific nutrients such as carotenoids and lipids, overall
nutrient content of eggs, or the timing of egg incubation varies across
laying order and how each of these factors affects the growth and
development of male and female offspring. Our investigation is fundamental
to a better understanding of how natural selection can lead to rapid
adaptation to local environments. The ability to adjust the growth patterns
of males and females as an adaptation to local environments may have
enabled the house finch and some other invasive vertebrate species to
colonize highly distinct and changing environments.